MRI: Acquisition of Nanospider for Development of Next Generation of Polymeric Nanofibers

1126193
Sengupta

In order for polymeric nanofibers to be used more widely, a thorough understanding of fiber-formation physics and fiber chemistry is critical. The research conducted using the Nanospider electrospinning apparatus will be transformational because it will provide answers to some fundamental questions involving polymer-solvent interaction, role of viscosity and surface tension in fiber spinnability, effect of potential gradient and collector distance (from needle containing the polymer). These answers are critical to provide innovative solutions to overcome technical barriers that exist in more widespread use of this technology. The Nanospider, in concert with other equipment already available at UMD, will propel UMass Dartmouth toward a niche area in material development and characterization that will attract local businesses and universities to assist their business/academic needs.